Research Starter Grant: The population genetics of adaptation

This project will develop statistical theory and methodology to characterize adaptive evolution in DNA sequences using whole genome polymorphism data. These approaches will significantly improve the identification and localization of recent selective events, and provide long sought information regarding the genomic distributions of the strengths and rates of beneficial fixations. This work is especially timely given the rapid increase in the availability of genomic data. Understanding of the products and processes of adaptation is of fundamental importance to linking genetic and phenotypic information. This project will enhance the infrastructure for research by continuing to foster partnerships between computational and empirical groups, as well as functional and evolutionary labs.